CyberSEES: Type 2: Collaborative Research: Real-time Ambient Noise Seismic Imaging for Subsurface Sustainability

This project creates a real-time Ambient Noise Seismic Imaging system, to study and monitor the subsurface sustainability and potential hazards of geological structures. Understanding and addressing the subsurface sustainability has significant impact on the natural, social, and economic issues of the region and across the globe. The system is comprised of a self-sustainable sensor network of geophones that can autonomously perform in-network computing of the 3D shallow earth structure images based on ambient noise alone. The project will study the subsurface sustainability of Long Beach, California and Yellowstone using their existing seismic array datasets and design the imaging system accordingly. In the late stages of the project, a field demonstration of the prototype system in Yellowstone expects to image the subsurface of some geysers. The techniques developed find further utility in monitoring and understanding the dynamics of subsurface oil, mine and geothermal resources, alongside concomitant hazards in oil exploration, mining, hydrothermal eruption, and volcanic eruption).

Real-time imaging of shallow earth structures is essential to assess the sustainability and potential hazards of geological structures. The ability to deploy large wireless sensor arrays in challenging environments is significant for any real-time hazard monitoring and early warning system. The new approach taken is general, and can be implemented as a new field network paradigm for real-time imaging of highly dynamic and complex environments, including both natural and man-made structures. Results from this research will be shared with Yellowstone National Park management (NPS), rangers, and staff. The real-time subsurface images can be used in visitor education centers, official handouts, ranger led field trips, and for public safety management. The educational activities of this project include enhancing undergraduate and graduate curricula and research programs at the three collaborative universities, and the project provides many opportunities for a collaborative cross-disciplinary exchange of ideas among them.